Research designs on underpinnings of systemic changes in regions serving impoverished, rural populations

The purpose of the proposed grant is to design and lay the necessary groundwork for major education research projects related to K-12 science and mathematics in the Delta resgion of Mississippi, Louisiana, and Arkansas. This project provides the advantage of working within the framework of an established major systemic reform initiative, The Delta Rural Systemic Inititiative. We will bring together an interdisciplinary cadre of national and regional researchers, resouce personnel and practitioners, all working in close collaborat8ion, to develop partnerships and research designs which will lead to major research initiatives focused on the underpinnings of systemic changes in regions serving impoverished, rural populations.